ENGINEERING RESEARCH EQUIPMENT: Wideband Tunable Laser- Optical Spectrometer System.

WPC 2 $ B P Z $ Courier 10cpi #| x Õm x 6 X @ 8 ; X @ HP LaserJet Series II HPLASEII.PRS x @ , t 0 OpX @Courier 10cpi Line Printer 16.67cpi 2 X V F ` ? x x x , Õm x 6 X @ 8 ; X @ k + H H H , H H @ ; @ / 7 ) ...) (... % + 5 / ) $ + % ) 6 ) ' : ( : ! ' 9310440 Sudarshan The Department of Electrical and Computer Engineering at the University of South Carolina will purchase the wideband tunable laser optical spectrometer system requested in this proposal which will be used in the continuing support of a large number of projects in the high field materials laboratory. The main interests of this laboratory include high voltage electrical insulation, high field properties of photoconductive materials, and switching of high currents at high voltages for applications in pulsed power and power distribution environments. The specific projects in which the requested equipment will be used include investigations into photoconductive properties of the next generation electronic materials such as epitaxial polycrystalline Diamond and single crystal silicon carbide films, the high power switching properties of Si and GaAs at high voltages, and surface defect characterization of large bandgap ? p materials such as A1 2 O 3 , SiO 2 , and poly diamond films, which are excellent electrical insulating materials. ***